SBIR Phase I: Brave Virtual Worlds Human Movement Artificial Intelligence (AI) Engine and Biofeedback Loop

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project aims to develop a biofeedback system that combines wearable sensors, real-time data capture, and immersive virtual reality visualization. This system has the potential to enhance the understanding of joint angles and movement patterns enabling in-depth analysis of human movement. The proposed technology targets a significant market opportunity in the athletic training and physical therapy industry, which is valued at $200 million.

This SBIR Phase I project addresses intellectual merit through a systematic research approach. The project involves designing and refining the biofeedback system, conducting extensive data collection, and implementing advanced algorithms for real-time analysis. The project's goals include developing a user-friendly interface, optimizing sensor accuracy, and creating a seamless biofeedback system for improved training and rehabilitation. Anticipated technical results include the design and development of a machine learning layer to classify and identify key components of movements in order to create a contextual database for further analysis to determine movement efficiency and highlight movement patterns as well as the development of a corrective exercise/feedback layer using the context from the machine learning layer to generate further insights into what is causing highlighted movement patterns This second later will incorporate corrective exercises that are suggested for improvement. Additionally, a real-time layer incorporating the first two layers into the real-time portion will be used for immediate feedback to the end-user, thus providing a closed bio-feedback loop.